East Coast Computer Algebra Day 2006

The East Coast Computer Algebra Day, ECCAD 2006, meeting, will be held at Drexel University in Philadelphia on Saturday May 6, 2006. The meeting is the thirteenth of the series of ECCAD meetings that have been held annually since 1994 at a variety of US East Coast locations. We estimate a turnout of about 80 participants from the Computer Algebra research community, doing either theoretical research or important applications in science and engineering. There will be three very distinguished invited speakers: Prof. Herbert Wilf of the University of Pennsylvania, Dr. Daniel W. Lozier from the National Institute of Standards and Technology, USA, and Prof. Masakazu Suzuki, of Kyushu University, Japan. Participants will come mainly from the eastern half of North America and especially from the East Coast of the United States. In addition to the invited talks there will be contributed poster and software demonstration sessions, covering all aspects of computer algebra: theoretical research, software and applications.